Three Special Focus Programs at DIMACS

Fred Roberts
0087022
DIMACS, the Center for Discrete Mathematics and Theoretical Computer Science, will run three "special focus" programs, one beginning each year for the next three years. One of the topics, Next Generation Networks Technologies and Applications, explores algorithms, models, and the fundamental principles governing the design, deployment and use of next-generation networks of unprecedented scale, heterogeneity, and complexity. The second, Computational Information Theory and Coding, is concerned with the interconnections among coding theory, theoretical computer science, information theory, and related areas of computer science and mathematics, in order to address challenges presented by wireless communication, magnetic/optical storage, signal processing in networks, network information theory, and quantum information theory. The third, Computational Geometry and Applications, emphasizes the development of geometric algo-rithms and solutions to problems of discrete and combinatorial geometry, and aims to deepen connections of computational geometry to such areas as real algebraic geometry as well as to applied problems from geographical information systems, VLSI design, graphics, and computer-aided design. The special foci are organized around a series of workshops. Visitors and graduate students will be heavily involved and there will be programs of a tutorial and educational nature.